Lesson Study: Case Studies of an Emerging Reform

This project would study the issues and complexities involved in the implementation of six lesson study programs in diverse settings including one that is for pre-service teachers. The goals of the project are 1) to understand the implementation progress and challenges at each site; 2) to share information about lesson study models, progress and problems; 3) to investigate lesson study's impact on teachers and students; 4) to contribute to the basic research knowledge on instructional imporvement, professional development and systemic change; 5) to contribute to the methods for studying emerging reforms and 6) to develop video and print materials for practitioners and policmakers. The primary hypothesis is that lesson study will be adapted by US practitioners operatin gin unique local contexts, that the nature of these adaptations will influence the development of lesson study.